CSUMS: Theory, techniques, and research in computational mathematics

Li
0703532

This CSUMS project links faculty from the departments of
mathematics, computer science, and applied science at William and
Mary to create a computational mathematics component in the
undergraduate program. Project personnel modify freshman and
sophomore courses to place greater emphasis on computational
issues, thereby preparing undergraduates for special upper
division courses and eventual participation in undergraduate
research. Students do research projects on theoretical and
practical problems from numerical linear algebra, quantum
computing, optimization, dynamical systems, and mathematical
biology. Typically, students in the program start doing research
in their junior year and the following summer, and continue their
work during their senior year through carefully supervised honors
theses. In addition, academic year activities include special
computational mathematics seminars and visitors, plus an annual
workshop in which students present their discoveries. Important
scientific findings are submitted for publication in professional
journals and presented at scholarly conferences. In addition,
students discuss their results and experiences in local high
schools, in the Virginia Governor's School for Science and
Mathematics, and in regional two-year colleges. Such outreach
presentations should attract a larger and more diverse population
of younger students into further study of computational
mathematics, and give research students in the program additional
practice in communicating mathematics to others. To broaden the
perspective of the students in the program, and to encourage the
interchange of ideas, there are visits to other institutions and
research agencies in the U.S. and abroad. A website is set up
to facilitate communication with other research groups and
computational mathematics programs.

At the base of modern computer and information technology is
an interdisciplinary field called computational mathematics.
This project unites the skills and knowledge of faculty from the
departments of mathematics, computer science, and applied science
to create a new computational component within the undergraduate
curriculum. It prepares students to participate in undergraduate
research projects in the theoretical and practical aspects of
computation, and it builds linkages between the computational
mathematics programs at William and Mary and similar programs
nationally and abroad. Successful experiences in this program
attract students to further study in computational mathematics
and to careers in the field. The diverse research backgrounds of
the program's faculty interact to break down the intellectual
compartmentalization that stands in the way of progress for both
our students and our faculty. The new ideas developed in the
program are disseminated through conference talks and scholarly
publication by our students and their faculty mentors. Through
outreach to high school and community college programs, they
attract a larger and more diverse group of pre-college students
into computational mathematics programs here and elsewhere. The
project is supported by the MPS Division of Mathematical
Sciences, the MPS Office of Multidisciplinary Activities, and the
EHR Division of Undergraduate Education.